First European Conference on Structural Control

9633175 Lagorio This is an international travel grant to support the Principal Investigator to participate in the European Conference on Structural Control, May 29-31, 1996 in Spain. The conference addresses research issues in an area of high priority to NSF and the involvement of a U.S. expert in the technical activities of the conference will benefit the U.S. research and development in this important subject through sharing of data and information and development of future joint research efforts with European countries. ***